Alaska Native Language and Oral History Digital Audio Resources

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This project will digitize and provide internet access to over 2000 Alaska Native language interview tapes-recorded under the 1971 Alaska Native Claims Settlement Act and another 2000 plus recordings selected from the 5000 held by the Alaska Native Language Archive. Represented in the collection are all of the Alaska Native languages and because most of the collection was recorded in the 1960’s and 1970’s with some as early as the 1940’s, the tapes represent the languages spoken prior to subsequent erosion or language shift to English. No other collection represents this diversity of language, nor the diversity of speech of Alaskan Native languages that these two collections capture. Because the recordings are on analog tapes, they are at serious risk of deterioration and loss. Digitizing the collection will not only preserve it but the project also will increase access, especially for speech communities and heritage learners, to the language materials - which are presently accessible only by traveling to Anchorage or Fairbanks and listening to them in their current archive storage facilities.